A State University -Tribal Colleges Partnership to Initiate Systemic Changes to Increase STEM Content in K -12 Education

The Colleges of Engineering and Education at North Dakota State University, together
with four North Dakota Tribal Colleges, partner to design a program that bridges the
pathways to engineering careers for American Indian students in the Tribal Colleges
and in high schools. Five workshops for the partner faculty include presentations by
nationally known figures and discussion on authentic assessment, science and
engineering pedagogy, cultural integration in education, best evaluation practices, and
proposal development. At a summer camp, faculty engage in free exchange of ideas
while designing items for evaluation. The items are experiential activities for middle and
high school students to work on during four Sunday Academies. They include lesson
materials, assessment strategies, demonstrations and opportunities for additional
studies. The long-term goal is to develop proposals to continue the collaboration to
provide opportunities to attract and retain American Indian students in STEM
disciplines.